Collaborative Research: CUAHSI/CLEANER Project for Demonstration and Development of a Test-bed Digital Observatory for the Susquehanna River Basin and Chesapeake Bay

Collaborative Proposal: CUAHSI/CLEANER Demonstration and Development of a Test-bed
Digital Observatory for the Susquehanna River Basin and Chesapeake Bay
Introduction: The proposed project will demonstrate the applicability and utility of a Environmental
Digital Observatory (EDO) design whose components are currently being developed by the Hydrologic
Information System (HIS) group of CUAHSI for use by both the CLEANER and CUAHSI communities.
While the 4 components of the EDO system have been identified (Environmental Digital Library (EDL),
Environmental Observations Database (EOD), Digital Environment-Shed (DES), Environmental Analysis
System (EAS)), only some of the components are currently in a state to be deployed in a beta-testing
mode, most notably the EDL and to some extent the DES. Because of the complexity of the system
components it is impossible to produce a roll-out product that would meet all the expectations from the
start. Hence, it is crucial that these components are put to a test in a test-bed environment to investigate
how the components behave, what pieces are missing, what additional developments need to be carried
out, and most importantly whether they are effective for the purpose they were designed. Because of the
envisioned scope in funding and time as well as the availability and current state of the developments, this
project will focus on the first of the components (the EDL), which constitutes the base layer upon which
all of the other components rest.
Objectives: The objectives are to: (1) test and demonstrate the usefulness of a EDL for inclusion in the
EDO as applied to nutrient fluxes in both the Susquehanna River Basin (SRB) and Chesapeake Bay (CB)
for which a data gap analysis will be performed (2) demonstrate the feasibility of using existing CI
components (EDO from CUAHSI and CyberCollaboratory from CLEANER) to meet a merged and
overlapping science agenda as demonstrated on the SRB/CB test-bed, and (3) further develop and extend
existing components as well as provide feedback on the design and functionality of CI components to the
technology partners at SDSC and NCSA.
Methodology: To accomplish these objectives an instance of the EDL will be installed at Drexel
University. Together with the project partners representing an upstream Hydrologic Observatory region
and a downstream Environmental Observatory region, we will identify and collect as many nutrient data
as is possible and currently available for these regions for inclusion in the EDL. While the population of
the EDL in the first step will require substantial effort to further develop current CI components
(appropriate metadata tags and tools for creating instantiations) we will conduct a data gap analysis in the
upstream region for missing or insufficient data. The gap analysis will be carried out using a statistical
modeling tool (SPARROW), which will yield predictions that can be compared to existing data sets. The
quality or match of these comparisons will be an indicator for the overall quality of the data sets as far as
their temporal and spatial coverage is concerned. This is an important step towards an improved
knowledge on the fluxes, stores, and pathways of water as well as nutrients within the SRB and the
receiving waters of the CB.
Intellectual merit: This project would be the first effort to investigate how hydrologists and
environmental engineers can make use of the suite of technical support applications currently under
development. This is a crucial step in further developing CI for the environmental and hydrology
communities by providing feedback in a beta-testing mode. In addition, the use of the CyberCollaboratory
prototype will allow the project team to test a collaboratory system while executing a research project as
well as generate valuable information on how well the system can be used for the purpose of supporting
observatory science and design. Both systems are IT cornerstones for a shared CI between and CUAHSI
and CLEANER and as such must be evaluated before being released to the communities.
Broader impacts: Besides the impact this project will have on the CI development for hydrologic and
environmental engineering communities in identifying future research needs, it will also address the
educational sector. One of the major goals of both communities is to bring water related data and tools
into the class room as well to i) better train the future workforce on issues related to water, and ii) to
expose them to aspects of information technology that could place future professionals at the interface of
water and IT, an educational goal that has been identified by the NSF Blue Ribbon Advisory Panel on
Cyberinfrastructure as being one of the most pressing educational needs of the future.